The Establishment of an Image Analysis Facility

This project establishes a modern facility that will allow students to capture, quantify, analyze, and present visual images obtained from a variety of sources. The project greatly enhances the education of students by facilitating and promoting the "hands-on" investigations critical to understanding how science is done. Student researchers capture images of objects such as tissue sections, and fluorescing cells, and quantify these images quickly and easily to test a wide diversity of functional, developmental and evolutionary hypotheses. The imaging facility includes MacIntosh Quadra computer workstations equipped with video cameras and software for image acquisition, manipulation, and reconstruction, and for statistical data analysis.